VINES: Track 1: NSF-SRC: High Efficiency Radio Over (HERO) fiber for 6G Networks and Beyond

Wireless networks are everywhere, connecting phones, cars, and even homes. As the demand for
faster and more reliable connections grows, there is a need for smarter technology that can keep up
with new challenges. This project brings together a team from Virginia Tech and Chalmers University
of Technology in Sweden to make these networks work better for everyone. By leveraging
the principles from artificial intelligence and brain-inspired computing, the team will help wireless
devices learn and adapt quickly, enabling them to respond effectively to dynamic real-world
conditions. This international partnership combines expertise from both institutions to address the
needs of next-generation wireless systems.

The research will build a new kind of radio access network, called AI-radio access network
(AI-RAN), that uses brain-inspired computing chips and advanced learning methods. The project
will design a flexible transmitter front-end that can take in signals sent over fiber optics and turn
them into wireless signals in a way that saves energy and works with both new and existing systems.
Special hardware, such as field-programmable gate arrays, will be used to build a neuromorphic
computing engine for real-time signal processing and optimization. The transmitter will recover
timing information from the incoming data and use it to control a mixed-signal radio-frequency
digital-to-analog converter and a power amplifier. The technical work is organized into focused
tasks, including building the hardware, creating the learning software, and making sure everything
works together smoothly. The project will also explore new ways to optimize power amplifiers
using artificial intelligence, aiming to reduce power consumption while maintaining high performance,
especially in the new frequency bands above 7 GHz.

The results of this project will help make wireless networks more reliable, efficient, and ready for
the future. This means better support for things like smart cities, self-driving cars, and remote
healthcare, where dependable and fast wireless connections are essential. The project will train
students in both the United States and Sweden, giving them hands-on experience with the latest
tools for building radio systems and artificial intelligence, and preparing them for careers in technology
and engineering. By working together across countries and fields, the project will help
make wireless communication safer, more flexible, and available to more people. The research
team will also share their findings through courses, conferences, and outreach programs, helping
to spread new knowledge and inspire future innovation in wireless technology.